Support for the 8th Annual International Academic Workshop

Support in the amount of $10,000 for U. S. participation in the Eighth International Academic Network Workshop at Sydney, Australia Israel is provided to a group of scientists who have worked with the NSFNET program since its inception 4 years ago. The group will also include 2 scientists from Latin America (E. Zorilla and V. Cid) supported by NSF's International Program. The discussion of building an international network is of high interest to the NSFNET program and it is important that the program be well represented at the Workshop. The Academic Network Workshop will bring together key individuals from countries around the world who are involved in designing, implementing, or funding networking facilities on a national or international scale for the academic community. It provides a forum for information exchange concerning national and international networking projects. Attendees represent over 30 countries in Europe, North America, Asia, Australia, New Zealand, and South America.